In Situ Rhizosphere Processes: Respiration, Exudation and Utilization

9307105 Cheng Three cohesive experiments are proposed to study rhizosphere processes in natural soil conditions. In the first experiment, root respiration, rhizosphere microbial respiration and root exudate composition will be measured via an isotopic trapping method under both gnotobiotic and natural soil conditions. In the second experiment, the effect of soil faunal grazers on the assimilation efficiency of root exudates will be assessed using both an isotopic trapping and filter-out-grazers techniques. In the third experiment, the proportion of rhizosphere microbial respiration from associative N2-fixation will be measured by an isotopic trapping plus soil nitrogen manipulation method. %%% Results from the first experiment will answer the question: how relevant are values of rhizosphere measurements obtained from gnotobiotic conditions to the real soil environment? Results from the second and the third experiments will be used to test the hypothesis that rhizosphere associative N2-fixation and faunal grazing of rhizosphere bacteria are two important biotic factors controlling the microbial assimilation efficiency of root exudates in situ. Findings from this proposed research will not only enhance general understanding of rhizosphere processes, but also help to build a dimension of ecological reality to rhizosphere research. N2= Nitrogen